U.S.-Finland Auroral Workshop

We propose to hold a U.S. Finnish Auroral Workshop in Helsinki from 19-21 March, 1992. The purpose of the workshop will be to review the past collaborations, to initiate new activities, and to establish collaborative links between a new generation of scientists in both countries. Significant new opportunities soon will be available due to recent or upcoming initiatives in auroral, magnetospheric, and deep space research. Finland has committed significant financial resources to space research and has greatly expanded the number of young scientists. Finnish scientists are presently operating major ground-based observation facilities, and several groups are involved in the FREJA, POLAR, CLUSTER, and INTERBALL spacecraft missions. In the U.S., the National Science Foundation has begun a major new program, Geospace Environment Modeling (GEM), that could significantly benefit from U.S. - Finnish collaboration. Working groups will form to identify specific investigations for both near- and long- term. We expect 24 Finnish scientists to participate, of which many are students and young scientists. Forty U.S. scientists will be invited, and a large fraction of these are also young scientists. In spite of the size of the workshop, limited funds are requested, and the money will be used almost exclusively to support the travel of young U.S. scientists who have not participated in previous U.S. - Finnish workshops.